Astronomy REU Site Directors Meeting

Proposal ID: AST 0227753
PI: Pilachowski, Catherine

Dr. Pilachowski is awarded funds to support a meeting of Site Directors of REU programs in Astronomy, to be held on the campus of Indiana University in Bloomington, Indiana. The purpose of the meeting is to bring together the Site Directors of the various REU Site Programs in Astronomy to share experiences and to discuss issues of relevance to all programs, with the hope of improving what are already outstanding programs for undergraduate students in astronomy, physics, mathematics, and related sciences.